CISE Research Instrumentation: An Interdisciplinary Center for Scientific Visualization

This award is to purchase a workstation, video production hardware and software to support research in areas of analysis and presentation of experimental fluid and granular flow, visualization and mathematical analysis of pattern formations and spatiotemporal chaos in large domains, visualization of solid modeling, and photorealistic animation of chemical reactions on surfaces. The effectiveness of large-scale numerical simulation problems in computer science and the natural sciences are dependent on high-speed computation and increasingly sophisticated visualization techniques. Duke University will be establishing a high-quality facility for the support of scientific visualization with emphasis on computer animation, for use by faculty in computer science and the natural sciences.